Microspectrofluorometry of Enzyme-Subtrate Reactions

Microspectrofluorometry of Enzyme-Substrate Reactions: Dr. Kohen proposes to use microspectrofluorometry to elucidate metabolic control and compartmentation in single metabolically standarized single living cells. He will micro-inject various substrates into the cells and monitor transient changes in the redox state by measuring fluorescence of pyridine nucleotides and flavins. The temporal and spatial metabolic modulation by specific inhibitors, hormones and drugs will be documented. He will make use of novel types of substrates e.g. caged substrates. These are substrates complexed with chemicals that keep the substrates inactive until the complex is cleaved by light. This should permit distinction between diffusion and active intracellular compartmentation. In situ studies of intact cells are required if we are ever to understand the organization of cell metabolism and activities of multienzyme systems in living cells. At present we must use the questionable technique of extrapolating from data obtained on enzymes in dilute solution. These studies should provide new insights into metabolic responses to growth, differentiation, environmental changes and cellular senescense.